REU: Systematics and Evolutionary Biology: A Continuing Program of Undergraduate Research at the American Museum of Natural History, New York City

Systematics and evolution are central concepts in biological
disciplines. Knowledge of the manner in which species are related to each
other and the mechanisms by which they become distributed across the globe
provide a framework (in evolutionary trees for example) for organizing and
communicating ideas and advances, for example in terms of biodiversity or
comparative genomics. Our program provides students with a coherent,
hands-on introduction to research in systematics and comparative
evolutionary biology, and serves a critical role in attracting, inspiring
and educating undergraduate students in the fundamental importance of these
biological disciplines. Students enrolled in the AMNH REU program have at
their disposal world-class collections of fishes, dinosaurs, reptiles,
amphibians, mammals and invertebrates, as well as cutting edge research
facilities in the Molecular Genomics laboratories, and the museum's
research library. Project titles, while all concerned with the basic role
of evolution and systematics, span a range of topics as broad as those
being investigated by the museum's curators, including the use of genetic,
histological, anatomical and paleontological data types. The American
Museum of Natural History is an inspirational place for young scientists to
work, and an REU program is a wonderful way for us to bring a critical mass
of bright young scholars into our departments and expose them to the
challenge and excitement of an original research program.